Collaborative Research: Slope Dynamics And Climate On Millenial To Centennial Time Scales

Science Summary: This proposal requests support for a detailed (millennial to centennial scale) multiproxy study of the surface and deep water dynamics along the continental margin in the NE Atlantic. Work will focus in the area involving interaction between the Labrador Current and the Gulf Stream. Multiproxy study of high accumulation rate cores from the Continental Shelf, Slope, and Laurentian Fan will allow identification of salinity and temperature changes and source of deep waters. The study will focus on rapid changes associated with the Little Ice Age, Medieval Warm Period, the 8.2 ka cold event, and the Younger Dryas.